Acquisition of an Inductively-Coupled Plasma Optical Emission Spectrometer Facility

9615712 Lyons This grant provides $82,965 as one-half support of the cost of acquiring an inductively-coupled plasma optical emission spectrometer (ICP-OES). An ICP-OES is uniquely suited to the reserach conducted by these PI's on the low temperature redox geochemistry of organic -rich shales and the redox chemistry of anoxic waters from the Cariaco Basin on the continental shelf of Venezuela. ICP-OES has superior capabilities for analyses of the light elements Fe, S and P in seawater over an ICP-MS do to the decreased sensitivity of an ICP-OES to matrix effects in samples with high total dissolved salt contents and isobaric interferences which plague ICP-MS analyses of Fe, S and P. Additional studies that will utilize the capabilities of the ICP- OES will include, major cation analysis of groundwaters to trace flow directions and contaminant transport and geochemical studies of leucogranite petrogenesis. ***